MARS: The Design of a Main Memory Database (Computer and Information Science)

This research, sponsored through the Research Opportunities for Women (ROW) initiative, investigates main memory database (MMDB) design. Declining memory costs and demands for fast database access times have spurred great interest in the development of MMDB's, where all or major portions of databases reside in the computer's main memory. The Principal Investigator's previous research into the factors which influence effective, recoverable MMDB design has been embodied in the MARS database system prototype. The research conducted here will develop further the requirements and characteristics of design support, including such elements as the novel addressing scheme using a set associative access to the stable memory. The overall objective of the MARS project is to actually implement a prototype MMDB system based upon this initial design. While that project will take several years, the purpose of this funded research is to produce a much more detailed design of the system. The importance of this research is that, by eliminating input/output bottlenecks, main memory databases may greatly improve the performance of knowledge based computer systems. This project represents one of the first efforts aimed specifically at designing, implementing, and evaluating a MMDB prototype.